A Novel Structured Vector Quantization Scheme: Design, Analysis and Applications

Farvardin The basic idea of this research is to develop a class of suboptimal vector quantizers in which the codebook is derived, in a simple manner, from another highly structured codebook, therefore, eliminating the need to store the codebook and hence allowing the design of very large codebooks. For memoryless sources, the codebook of the Structured Vector Quantization (SVQ) is selected as a well-defined subset of the Cartesian product of the codebook of a specific entropy-coded scalar quantizer. Since the SVQ codebook is a part of a highly structured codebook, the memory requirements, the complexity, and the needed training data are reduced significantly, hence, allowing the possibility of designing SVQs with large codebooks. The research plan entails the design, analysis and simulation of SVQs, along with a meaningful comparison of their merits with respect to other known quantization schemes. Based on the results of this research, the application and performance of SVQs in more practical situations representative of real-world problems will be studied.